Aerosol Aircraft Measurements for Aerosol Characterization Experiment (ACE)-Asia

This project will measure the microphysical and optical properties of atmospheric aerosols during the Aerosol Characterization Experiment (ACE)-Asia intensive field program. The instrument package that will be placed on board the NCAR C-130 will include measurements of bulk aerosol properties, size distributions, scattering coefficients, and aerosol nucleation and evolution. These measurements along with related satellite data and chemical transport models will help to relate measured aerosol properties to air mass characteristics and to identify sources and source regions.